SGER: Measurement Based Channel Modeling for Coherent Terahertz Communications

0121354
Van Veen

Characterization of propagation in the near THz band has been limited to scalar absorption measurements having low spectral resolution. As with cellular and PCS bands, this level of knowledge is grossly inadequate to assess communication system performance and design. The PIs will perform initial measurements and modeling of transmission, multipath scattering, and fading effects in the near-THz band to set the stage for a more comprehensive proposal and effort to develop communications techniques that exploit the unique and substantial opportunity this band offers. The proposed measurements will help them identify suitable environments and ranges for communication using the near THz band. They also expect to gain insight on the nature of transmitter and receiver structures that will be required to obtain acceptable performance.